Computer Integration into the Undergraduate Physics Curriculum

This project is integrating computer use into the intermediate and upper-level undergraduate physics curriculum through use of a local-area network. The specific courses affected by the project are Intermediate Experimental Physics, Computer Applications to Physics Laboratories, and Computational Physics. However, the proposed network also provides a framework to later serve the undergraduate core sequence and newly implemented Applied Physics Program. The grant provides funding for a network consisting of a file server, a computational server, and eight relatively modest workstations linked by Ethernet. The computers in laboratories make practical the upgrading of existing experiments, the teaching of modern methods of computer interfacing, and the future introduction of contemporary new experiments into the undergraduate curriculum. A key component of the network is the computational server which provides high-performance computing to each network workstation. This allows undergraduate students to perform simulations of complex physical systems and processes, large-scale data analysis, and 2D and 3D graphical renderings for animations not feasible on modest workstations alone. It also enables students to develop detailed physical intuition not possible from hand-waving arguments that ordinarily are the only means to discuss these problems in undergraduate courses. Most significantly, the project enables the department to better prepare students for what is expected of them in graduate study, industrial positions, and secondary school teaching.NSF grant funds are being matched with funds from non-federal sources.